Doctoral Dissertation Research: Adult Consequences of Participation in Youth Subculture

NSF Sociology Program
Fall 2001 Doctoral Dissertation Research Improvement Award Competition

Abstract

SES-0202129
Barbara Brents and Pete Simi
University of Nevada at Las Vegas
DDR: Adult Consequences of Participation in Youth Subculture

This dissertation research will investigate the life histories of early participants in the Los Angeles white supremacist subculture. The results will supplement our knowledge of how early social movement participation affects later politics and life outcomes. Past studies of the long term consequences of social movement participation have focused almost exclusively on liberal and leftist social movements. This study will investigate similar consequences but for a white supremacist movement. Political, occupational, marital, and criminal outcomes will be investigated in follow-up in-depth interviews with at least 25 men who were members of such white supremacists movements as youths prior to 1990.